CAREER: Approximation Algorithms - New Directions and Techniques

The theory of NP Completeness has shown that several naturally
occurring problems are unlikely to have polynomial time
algorithms. One approach to overcome this fundamental intractability
for optimization problems has been to shift the focus from exact
solutions to obtaining approximate solutions. The study of
approximation algorithms has thus emerged as a rich and exciting field
and recent advances have led to good approximation algorithms for
several fundamental optimization problems. Despite these developments,
several interesting and difficult open problems remain. A primary
focus of this career development plan is studying the approximability
of fundamental problems and attempting to close such gaps in our
understanding.

The broad research goals of this career development plan are the
following:

1. Developing new tools to devise approximation algorithms
for problems on directed graphs.
2. Developing new techniques for metric approximations and
embeddings as building blocks for approximation.
3. Investigating a systematic way to obtain and exploit
strengthened SDPs as well as the use of strengthened SDPs for
graph partitioning minimization problems and ordering problems.
4. Devise techniques to deal with scheduling problems with
precedence constraints.
5. Extend the machinery of approximation algorithms to new
settings such as information theoretic and algebraic problems.

The research program will involve students at all levels, from
undergraduate projects on understanding the quality of LP and SDP
relaxations through computational experiments, to the mathematical
research suitable for Ph.D. students. The educational component of
this project includes the development of courses geared towards
disseminating new algorithmic ideas outside the theoretical computer
science community; the techniques developed in the latest research
will be distilled into new graduate and undergraduate courses. Course
materials developed for such new courses will be made freely available
to enable similar courses to be taught elsewhere.